Workshop on Polarized Ion Sources and Polarized Gas Targets; Madison, Wisconsin; May 23-27, 1993

A Workshop on new developments and techniques in polarized gas targets and polarized electron and ion sources will be held. Such devices are central to new thrusts in nuclear and elementary particle physics, worldwide. This workshop is part of a long series of meetings held roughly every 3-4 years, has been sanctioned by IUPAP and will have strong international participation.